Studies of Flow Film Boiling

Film boiling heat transfer on submerged surfaces will be investigated. The specific issues to be addressed are: the stability of the vapor films; the effects of liquid-solid contact; and the behavior of the film boiling wake. Theoretical models will be developed and experimental measurements of the surface temperatures of heated spheres under boiling conditions will be made.